EAGER: Telehealth and Wellness for Senior Citizens Utilizing In-Home Gigabit HD Multipoint Videoconferencing

High-Definition Multipoint Videoconferencing is a core application for Gigabit and faster networks. Commercial systems, designed for 10 megabit and slower networks, employ expensive conferencing bridges that have to be managed, limit the number of concurrent video conferences, and limit the quality of the video. In this research project, the endpoints discover and exchange their capabilities and determine the usable network bandwidth between them to negotiate parameters for the best quality video conference. Since the video conferences are established between two or more endpoints directly, the solution is scalable. And since no conferencing bridge is used, the solution is affordable. By taking advantage of the Gigabit or faster network bandwidth, the endpoints can send reduced-compression video or uncompressed video that is higher quality than that offered by current systems. In GENI-enabled networks, layer 2 routing is used to increase effective bandwidth and GENI slices are used for enhanced privacy.

The Case Connection Zone, a Gigabit fiber-to-the-home research project of Case Western Reserve University, is demonstrating how the Gigabit network can be used to improve quality of life for the residents in several national priority areas, including health and wellness. Next generation HD multipoint video conferencing is an essential tool for several initiatives. In about 200 senior residences, it enables seniors, without leaving home, to consult clinicians, participate in chronic disease support groups, in social groups, and in lifelong learning. Many Gigabit applications will incorporate this technology or be built upon it.